Effects of Quantum Fluctuation in Dynamical Processes (Physics)

The effects of quantum fluctuations on nonlinear dynamical processes are studied. These include the quantum manifestation of the fractal dissociation boundary of a driven spin system, the localized states of hydrogen and resonance fluorescence in a three-level atom. The relationship between quantum and classical mechanics is investigated using semiclassical and quantum mechanics, the Husimi and generalized Husimi representation and by varying a fluctuation parameter. Finally, the mechanism underlying the classical and "quantum fractal" boundary and lifetime distributions in studied using Cantor sets in phase space.